Microfabricated Thermal Modulator for Comprehensive Two-Dimensional Gas Chromatography

This research aims to develop a key microelectromechanical systems
(MEMS) device necessary for low-power, low-cost, robust 2D GC. The specific objectives of this
project are to (a) develop a good understanding of the physics and chemistry governing the
microscale thermal modulation based on theoretical modeling, (b) develop a new MEMS-based
thermal modulator (microTM) device design such that it enables a 2D GC system that achieves
theoretically predicted maximum peak capacity and minimum peak breakthrough, (c) fabricate the
designed ìTM and experimentally characterize its performance, and (d) finally, demonstrate micrTM incorporating
2D GC with the highest compound separation performance with optimal operational conditions determined.

Intellectual Merit: With the development of the microTM, our study will provide the first step towards
fully implementing comprehensive 2D GC with MEMS technology. It is readily conceivable that the
improved separation power of 2D GC systems would pave the way for highly reliable and accurate
in-situ monitoring/detection of VOCs in a sample even containing complex co-contaminant
backgrounds. This project will make important contributions to micro analytical instrumentation for
ultimate use in field-deployable GC analyses.

Broader Impact: Together with cost effectiveness, complete elimination of consumables from the 2D GC
operation with the microTM would fill the gap between the current relatively limited use and future
general use of the 2D GC technique in a wide spectrum of applications, potentially opening new
commercial markets. The fundamental knowledge gained from this research will be assimilated into
the PI's graduate course on MEMS and chemical sensing. Summer interns from underrepresented groups will be trained through synergetic
coordination with the NSF National Nanotechnology Infrastructure Network (NNIN) program.